WORKSHOP: Collaboration and Negotiation in Supply Chain Management and Electronic Commerce; Gainesville, Florida, February 26-27, 2002

This award provides partial support for a workshop organized by the University of Florida focusing on research on negotiating strategies and mechanisms in extended enterprises which are spatially and organizationally distributed. The workshop will include a mini-symposium of research papers on the topic, coupled with breakout sessions to identify a future research agenda. The primary goals of the mini-symposium are to bring academic researchers and industry practitioners together to: (1) Characterize the problems and challenges facing leading-edge manufacturing and service firms in the areas of electronic commerce (eCommerce) and supply chain management; (2) Define the state-of-the art technological and decision support capabilities currently available to industry; (3) Identify the new technological and decision support solution capabilities needed for both meeting newly arising challenges faced by industry and for driving new sources of strategic and competitive advantage; and (4) Identify and define academic research opportunities and challenges for developing new technological and decision support solution capabilities sought by industry.